High Precision Temperature Log of GISP2 and GRIP Boreholes, Greenland, for Paleoclimate Reconstruction and Ice Dynamics Studies

9321376 Waddington This award is for support for a three year project to obtain temperature logs in the Greenland Ice Sheet Project Two (GISP2) and Greenland Ice Core Project (GRIP) boreholes at Summit, Greenland using the U.S. Geological Survey's (U.S.G.S.) high precision temperature logging system. Temperatures will also be logged in several dry holes near GISP2 and GRIP, since the upper 100 meters in the main holes have been thermally disturbed by the drill domes and drilling activities. The data are needed to derive surface paleotemperatures directly from the present-day temperature transients remaining at depth at these sites, and to better calibrate the isotope paleothermometer over the past 25,000 years. Simultaneous inversion of high precision data from both deep holes will allow isolation of the paleoclimate signal from ice dynamics effects. The temperature data may also allow detection of rapid shearing in the silty basal ice, thus providing a test independent of the borehole deformation. ***